Discovery Corps Program Assessment - 2006

Michael Kenney, Eigen Solutions, will conduct an evaluation of the Discovery Corps Fellowship Program. The evaluation will include interviews with current and previous Fellows, mentors, and other individuals involved with the DCF Program. An index for assessing the value and level of satisfaction of key benefits of the DCF Program will be developed and will serve as a benchmark for this new Program.

The Discovery Corps Fellowship Program is a pilot program seeking new postdoctoral and professional development models that combine research expertise with a service-oriented project. The Discovery Corps Program supports both Postdoctoral Fellows and Senior Fellows.